Analytical Studies of Liquid Crystalline Patterns and Phase Transitions

Fatkullin
DMS-0807332

The investigator studies free energy functionals associated
with liquid-crystalline systems and gradient flow evolutions (and
more general dynamics) associated with these functionals. The
study of critical points of the free energy functionals provides
information about the equilibrium states of the corresponding
systems, whereas the gradient flows provide insights into the
out-of-equilibrium phenomena. In particular, the investigator
applies the methods recently developed for the Onsager model of
spatially homogeneous nematic liquid crystals to a more general
setting. Employing a novel approach based on the combination of
Oseen-Frank, Landau-de Gennes, and Onsager's theories, the
investigator obtains an analytically tractable theory explaining
the spatial variations of orientational ordering. Further on,
the investigator exploits the fact that a particular case of
two-dimensional nematics is closely related to complex
Ginzburg-Landau-type models and the problem of harmonic mapping
of a domain into a unit circle. This connection allows him to
establish rigorous asymptotics for various patterns (twisters,
vortices, domain walls, etc.,) arising in this particular setting
using the tools from Ginzburg-Landau theory. The dynamical part
of this project concentrates on the extent to which the kinetic
equations for evolution of orientation probability densities and
correlation functions (described via gradient flows in
Wasserstein spaces of probability measures or more general
mass-transportation dynamics) are reducible to the commonly used
Ginsburg-Landau-type dynamics of the order parameters. A
systematic analysis of such reductions is requisite for a
complete understanding of dynamics of liquid-crystalline systems.

Liquid crystals are substances that share characteristics
with conventional liquids and crystalline solids. Such an exotic
combination of material properties allows for a high degree of
dynamic control, which in turn allows for a wide range of useful
applications. Liquid Crystal Display (LCD) technology is,
undoubtedly, the prime example. Modern applications employ the
fact that optical properties of liquid crystals change under
external influences such as applied electric or magnetic fields,
stresses, etc. By manipulating the latter in an appropriate
manner one can achieve the desired effects. The theory of liquid
crystals has been developing since the middle of twentieth
century. Its success has been recognized by a Nobel Prize
awarded in 1991 to P.-G. de Gennes for fundamental contributions
to our understanding of order phenomena in complex systems.
Still, due to enormous growth in applicability of liquid crystals
and rapid development of the associated technologies, it has
become even more important to go beyond the general principles
and to further expand our understanding. Although computer
simulations provide valuable insights, for precise control over
liquid-crystalline materials it is essential to support the
experimental findings and computer simulations with a rigorous
mathematical theory. Development of such a theory is the primary
goal of the investigator's work. His particular interest is
mathematical analysis of patterns, their formation and evolution,
and dynamics of phase transitions in liquid crystals.